A Research Infrastructure for Fast Image and Visualization Distribution

9401159 Turner This award provides support for extending and enhancing a broadband multi- media network to support a set of closely related collaborative research activities in the area of distributed imaging and visualization. The network will utilize Asynchronous Transfer Mode (ATM) technology for the fast distribution of high-resolution images, visualizations, studio-quality video and multi-rate data. The research topics fall into two categories: research on enabling technologies such as scalable networks, host/network interfaces supporting multimedia applications, design and analysis of large-scale multimedia information servers, protocols and operating systems, scalable parallel processing and declarative visualization. And secondly, research on the application of these technologies to real distributed imaging and visualization systems.